Nuclear Reactions and Structure

This group will carry out a broad based research program in theoretical nuclear physics. Among the topics to be worked on are quantization of collective motion, relativistic transport equations, collective flow in heavy-ion collisions, two-proton interferometry, deuteron production in heavy-ion, simulations of ultra relativistic collisions, large basis shell model calculations, and the structure of exotic neutron rich nuclei.